Non-accelerator Experiments and Their Implications

The award is for theoretical studies important for the interpretation and understanding of experimental data on cosmic-ray extensive air showers and neutrino fluxes. The group of two senior faculty, together with a post-doctoral associate focus on calculations of neutrino interaction rates in the various detectors, further development of a model to calculate particle interactions at high energies and determination of the primary composition of cosmic-rays at . 1014 eV. That last is to be compared with expectations based on hypothesized acceleration mechanisms.